EAGER: Development of Novel Analytical Approaches for Measurements of CNTs Release from Polymer Nanocomposites

CBET - 1342028
There is growing interest in the development of nanocomposites consisting of organic polymers
and various nanomaterials. These new materials can provide unique functionalities as compared
to unmodified polymers in terms of dielectric, magnetic, thermal, mechanical, optical, transport,
permeation and separation properties. Although nanomaterials are considered potentially hazardous,
they are often considered safe when encapsulated into the matrix. However, systematic research
to confirm the abovementioned paradigm is lacking, despite the potential risks of nanomaterial
release to human health and environment.
Intellectual Merit :
Current research on the stability of nanocomposites has focused primarily on short term stability
and performance, whereas the longer term issues have not been properly addressed. This knowledge
gap has the potential to hinder both applications and acceptance of polymers in various industries.
More specifically, stability of both matrix and nanocomposites are of critical importance.
It is known that the polymer matrix can undergo degradation when exposed to various environmental
conditions during production, use and disposal. This can lead to nanofiller release, which
can potentially cause various health and environmental problems. Therefore, it is absolutely
critical to understand the behavior of nanocomposites under relevant environmental conditions.
More specifically, evaluation of the amounts and rates of Carbon Nanotubes (CNTs) release
from composites has been a tremendous challenge for the existing analytical techniques so
far. This project will utilize C-14 labeled CNTs which will allow us to quantify the released
CNTs using a relatively simple analytical technique. This will be of tremendous value for
advancing our knowledge of various CNTs exposure scenarios by developing accurate metrology
tools. This tool can be also vital for development of accurate life cycle assessments of CNTs
encapsulated into the polymer composites.
Broader Impacts :
This project can significantly impact nanotoxicology, environmental engineering, materials
science and green chemistry/engineering areas through evaluation of various strategies for
delivering functional nanocomposites with reduced health and environmental impacts. These
approaches are designed to make timely contributions to a basic understanding of the environmental
health and safety of nanotechnology. During the course of this project, the students will
gain fundamental and applied knowledge in many areas of science and engineering encompassing
environmental health and safety of nanotechnology. Our team has already utilized the resources
of a new NSF REU site in Nanotechnology for Health, Energy, and the Environment at Stony Brook
University. We will continue to recruit students through the REU site, which focuses on students
from non-research, 4-year institutions with this research project. Through several recruitment
mechanisms already established at the Stony Brook University we will reach underrepresented
groups, including students from minority and economically disadvantaged communities as well
as females. All these activities will establish a good foundation to achieve notable broader
impacts of this proposal